ABR: Using Existing ALVIN Data to Study Volcanic Growth Faults and the Importance of Sheet Flows vs Pillow Lavas on Mid-Ocean Ridges

The focus of this work will be on two aspects of the architecture of the ocean crustal volcanic section: the role of volcanic growth faults on slow-spreading ridges, and the relative abundance of different types of lava flow morphologies as a function of spreading rate. The data sets to be analyzed include archived ALVIN bathymetry, video imagery, and outboard 35 mm camera still pictures collected during traverses across scarps on the Mid-Atlantic Ridge, the Galapagos spreading center, the East Pacific Rise, the Cayman trough, and the Juan de Fuca/Gorda Ridge.